The Gorge, The River, The Valley and The Ocean

This proposal is a cooperative effort between the Educational Service District (USGS) to develop a science teacher education program that incorporates components of a successful prior NSF program that addressed Mt. St. Helens. The project, over a span of three years, plans to provide instructional strategies to 120 teachers of grades five through nine using a peer coaching and trainer-of trainers model. Teams will study the related physical and life sciences of the Columbia River Gorge, the Columbia River, the Willamette Valley, and the Pacific Ocean.